Remembering Choices

The proposed research focuses on people's memory for past choices. Memory for choices has the potential
to affect people's self-concept, well-being, attitudes, and future decisions. Regret for options not taken can cast a shadow, whereas satisfaction at having made the right choice can make a good outcome seem even better. Our memories of past options provide essential information about our tastes and experience in the context of current and future decisions. These memories have implications for other people as well (e.g., as we give advice about others' choices or participate in collective decisions). Understanding the causes and consequences of distortion in memory for choices, and possible ways to avoid such distortion, can have far- reaching benefits in domains ranging from therapy and consumer education to medical decision making and the law.

Theoretical explanations of memory distortion share many common themes and emphasize the constructive
nature of memory (e.g., Bransford & Johnson, 1973; Loftus, 1979; Reyna & Lloyd, 1997; Roediger &
McDermott, 2000; Schacter, Norman, & Koutstaal, 1998). The current proposal uses the source monitoring
framework (e.g., Johnson, Hashtroudi, & Lindsay, 1993), one of the most well-developed theoretical
approaches to memory and its distortions, to help predict how factors that have been shown to be associated
with memory distortion will affect memory for choices. Preliminary work (e.g., Mather, Shafir, & Johnson,
2000) indicates that people have choice-supportive biases in memory, favoring the option selected over the
one rejected. This choice-supportive tendency goes beyond simply selectively remembering the strengths of
chosen options and the weak attributes of rejected alternatives. People also tend to make errors that favor
their chosen option, misattributing positive features to their chosen option and negative features to the
rejected option. The studies in the first section of the proposal investigate the mechanisms underlying such
choice-supportive memory distortion. The second section investigates some potential effects of choice-
supportive memory on well-being and on future decisions, and the final section investigates how choice-
supportive biases may be avoided or attenuated.

Remembering choices plays a central role in making future decisions. A better understanding of memory
distortion and its influences may help improve decision making in important domains. Better insight into the
role of memory also promises to add to our understanding of intuitive decision making practices and
emergent biases. Finally, an understanding of how memory of past decisions affects our satisfaction, goals,
perceived responsibility, and remembered experience may contribute to well-being in numerous ways. The
proposed studies are intended to shed light on how past choices may be remembered or misremembered, on
how these tendencies may be altered, and on the hedonic consequences that such alterations might have.